A Framework for Utilization-Based Absolute Delay Guarantees Using Adaptive Prefetching

We propose to develop an architecture and theoretical underpinnings for providing absolute delay
guarantees for HTTP traffic. HTTP traffic constitutes an overwhelming majority of all Internet
traffic today. Both network load and user-perceived end-to-end response time of web requests
depend not only on network conditions but also on the performance of web proxy caches around
major network backbones. For example, in an HTTP-dominated network, increasing the total
amount of cached data may increase hit ratio and subsequently decrease both network load and
network delay. Hence, an architecture for end-to-end web traffic delay guarantees should explicitly
consider the effect of caching. It is the joint consideration of caching and network performance that
separates our work from prior efforts on delay guarantees. Essentially, the joint problem considers
data placement (replication) as a dimension to manipulate for affecting traffic delays. The approach
is cost-effective since data storage is cheaper than network bandwidth.
The first contribution of this project is to develop a scheme for network load control that relies
on adaptive data prefetching. The architecture can be thought of as replacing admission control
at the network boundary. In an HTTP context, while admission control would prevent a client's
request from entering the network, data prefetching would bring the information to the client's
side before it is requested, hence de ecting the request away from the backbone. While prefetching
itself introduces traffic, the performance gain comes from the fact that, unlike serving live requests,
prefetching can occur at a lower priority in the background without jeopardizing user-perceived
network performance. Hence, prefetching removes time constraints from a big chunk of HTTP
traffic which can now be served at a lower priority. Consequently, the remaining (live) HTTP
traffic will receive better service from the network.
The second main contribution of the project is a theoretical derivation of the relationship
between network resource utilization and the satisfaction of end-to-end deadlines. Specifically, we
prove that keeping network resource utilization due to live web traffic below a given threshold
ensures that all ow deadlines are met. We call this threshold, the overcommitment threshold .
This result allows us to associate deadlines with live web traffic and ensure their satisfaction simply
by performing utilization control. The result obviates maintaining per- ow state in the network for
the purposes of satisfying absolute delay guarantees.
Merging the aforementioned contributions together, we propose to use our adaptive prefetching
scheme to keep the amount of live web traffic below the overcommitment threshold. Hence, we
ensure the satisfaction of absolute delay guarantees while requiring neither admission control on the
network boundary nor per- ow state in routers. The architecture calls only for service differentiation
in the network to separate live real-time web traffic from background prefetching traffic which may
receive lower priority. The project will use the PI's existing evaluation testbed for implementing
and evaluating architectural prototypes.